RUI: Gulf of Alaska Recirculation Study (GARS)

In this project, the P.I.'s will analyze and model an extensive set of Current Meter, Hydrographic, Acoustic Doppler Current Profiler, Drifter, and Meteorological data from the Gulf of Alaska, collected from eight cruises over a period of three years. Objectives are to describe and understand seasonal and interannual variability of the Northeast Pacific Ocean circulation.